Center for Robotic First Response

The University of Pennsylvania plans to become the fourth research site of the existing Industry / University Cooperative Research Center (I/UCRC) for Safety, Security, and Rescue Research Center (SSR-RC), composed of the University of South Florida as the lead university with the University of Minnesota as a partner. The University of Pennsylvania will follow the same policies as the existing center.

The main goal of the center and the research site is to create the infrastructure to facilitate engaging academic and industrial expertise for the direct and immediate benefit of our society at times and in situations during which it is most vulnerable. A planning meeting has been scheduled to determine the organization and viability of forming a research site for the existing I/UCRC.